Tribal Colleges and Universities STEM Leaders' Forum 2010

The American Indian Higher Education Consortium (AIHEC) requests support to conduct the 2010
TCU STEM Leaders’ Forum (Forum) for the National Science Foundation/ Tribal Colleges and Universities
Program (TCUP) awardees and for the presidents at each of the nation’s 33 accredited Tribal
Colleges and Universities (TCUs). The Forum will focus on strategies and best practices for
successfully recruiting and retaining American Indian students in science, technology, engineering
and mathematics (STEM).
During the 2-day TCU STEM Leaders’ Forum participants (including TCUP principal investigators
and project directors, TCU presidents, and NSF representatives) will discuss issues and participate
in formal sessions during which they will share and explore best practices and innovative
approaches to strengthening the American Indian STEM pipeline. The Forum will provide a opportunity
for tribal colleges to engage in and contribute to the national discussion on broadening participation
in STEM.
A key outcome of the proposed Forum will be increased success in recruiting and retaining
Indian student in STEM programs at TCUs, as effective practices are identified and implemented.
Intellectual Merit
The proposed Forum will promote a community of practice among NSF TCUP managers and faculty,
facilitating the exchange of best practices and strategies for achieving the common goal of
improving STEM participation and achievement among American Indian students. The proposed
Forum will engage national STEM leaders, including the leadership at NSF and tribal colleges,
in a critical dialogue focusing on the current state of knowledge and understanding of broadening
participation strategies as they are applied by tribal colleges.
Broader Impact
The Forum will make an important contribution to the ongoing debate on how best to promote
broader participation of the nation’s underserved and underrepresented minorities in STEM
education and professions. It will promote the exploration and greater understanding of state-of-the-art
broadening participation strategies not only by tribal college faculty and administrators,
but by the leadership at NSF and other federal agencies with science missions.